MAPLI: Mapping and Data Visualization Activities Co-developed with Rural Public Libraries

Our world is increasingly driven by data collection and interpretation, and knowledge of geospatial data provides context in addressing real-world opportunities and challenges that current and future generations face. Data collection and interpretation are pivotal tools that can be used to monitor, analyze, and react to water access issues, which disproportionately affect rural communities. However, when such issues arise, rural communities often lack the resources, funding, and staff to adequately address them. Rural public libraries, which make up almost half of the public library systems in the United States, are a critical part of the rural education system and often serve as hubs of STEM learning in the communities they serve. The future rural STEM workforce already lives in rural America, and public libraries are key players in exposing all members of their communities to STEM learning in informal contexts. This project will engage rural public library staff and content experts to co-develop geospatial data exploration activities that focus on local and regional water access issues. By building capacity with rural library staff to create and lead locally relevant programming, the project will increase STEM interest, engagement, and knowledge in their communities. The resulting mapping and data visualization project resources will also be made accessible to rural library staff across the nation.

The project will engage ten rural library staff advisors to co-develop and pilot a low-tech exhibit, check-out kits, programming kits, facilitation guides, and a national reading and activity challenge focused on locally and regionally relevant data exploration and water access issues. The library staff advisors will both receive professional development on the co-development process and have input into the suite of training materials being made for dissemination to rural library networks. Project research will focus on answering the questions: 1) What are the effects of the co-development process and activities for project participants, specifically as they relate to ability and interest in identifying and participating in salient local issues? and 2) Does an actionable and replicable theory specific to libraries emerge from this process? Research will focus on creating a replicable and actionable theory, with a design-based research lens, focused on iterative development in the library setting and co-development of hyper-local activities and resources. By prioritizing the needs of practitioners and patrons, the project will increase understanding of the social and community realities that affect how rural residents participate in and view STEM. Study of the flexible learning resources for broad use in rural libraries across the nation will also contribute new knowledge to the research base regarding co-development in informal learning environments and engaging public audiences in STEM.

This project was funded by the STEM K-12 program, which supports fundamental, applied, and translational research on STEM learning in both formal K-12 education and informal learning environments.